NSF INCLUDES DDLP: Project SYSTEMIC (A Systems-Thinking Approach to STEM Ecosystem Development In Chicago)

Project SYSTEMIC (A Systems Thinking Approach to STEM Ecosystem Development in Chicago) will apply systems thinking to a community-level STEM ecosystem development effort in one of Chicago's largest and most distressed neighborhoods. The project aims to broaden participation of African American and low-income Chicago Public School students (preK-12) in STEM learning opportunities. The proposed model of collaborative change for this project builds on the work of two coordinated collective impact initiatives--the Chicago STEM Pathways Cooperative and Austin Coming Together, a network of local organizations committed to improving educational and economic outcomes for the community. A key feature of this project is that it adds innovative, interactive, visual problem structuring and solving strategies to highlight and uncover the systemic interdependencies that contribute to the BP challenge for African American youth.

The project will convene a series of workshops to engage community stakeholders in the mapping of the STEM ecosystem. A broad and representative cross-section of community stakeholders will design and develop evidence-based STEM ecosystem organizing and implementation strategies. Key outcomes anticipated from this project are the development of a shared understanding, agenda, activities, and commitment to collectively address the underlying challenges of STEM access and participation for African American youth. The goal of this community-driven project is to develop a viable system model that elevates neighborhood voices, historically excluded from the problem-solving table and decision-making processes, to leverage existing assets, build local capacity, increase messaging and awareness of the value of STEM, identify needed new programs, and develop coordination/resource sharing mechanisms across partners to support implementation. The evaluation of this project will be grounded in systems thinking and culturally-responsive approaches that seek to understand the diverse perspectives of stakeholders while measuring progress toward project goals. Evaluation data will be used to assess the problem structuring process, to evaluate the organizational strategy designed to address the structured problem, and to support adaptive learning among stakeholders.